G8 Initiative: Catalysing the growth in metal recovery

1256286 (Graedel). This NSF award funds U.S. researchers participating in a project competitively selected by a G8 Research Council Initiative. The Initiative is a collaboration among the U.S. National Science Foundation, the Canadian National Sciences and Engineering Research Council (NSERC), the French Agence Nationale de la Recherche (ANR), the German Deutsche Forschungsgemeinschaft (DFG), the Japan Society for the Promotion of Science (JSPS), the Russian Foundation for Basic Research (RFBR), and the United Kingdom Research Councils (RCUK), supporting collaborative research projects selected on a competitive basis that are comprised of researchers from at least three of the partner countries.

Climate change and peak oil issues have been making headlines with increasing frequency and solutions are being sought to lessen dependence on oil. As new technologies tackle one challenge, other challenges are created through resource deficit. Many low carbon technologies including wind turbines, electric cars and catalytic converters require precious metals in unprecedented quantities threatening their continued availability. These elements are being dispersed throughout our environment, making them costly and difficult to recover. This emphasizes the necessity for a new approach to metal capture and use, thus increasing the lifetime of our reserves. This project will investigate a new direction for turning this vision into reality. Initial studies indicate that plants are capable of phytomining platinum group metals (PGM) to form stable metal nanoparticles that are active in a variety of industrially important reactions. We intend to utilize mine wastes to pass through plant beds for metal adsorption. The resulting plants will be subjected to controlled pyrolysis to yield a material with stabilized nanoparticles of PGM for use as supported catalysts. This offers an effective solution to an international problem of metal depletion and will lead to the development of a new range of naturally derived catalysts. Project collaborators consist of a multidisciplinary team that incorporate the following essential expertise: The Centre for Environmental Research in Minerals, Metals and Materials at University of British Columbia, who will gather information on worldwide distributions of PGM ore bodies, provide mine tailing and compositional analysis. The Green Chemistry Centre of Excellence and Centre for Novel Agricultural Products at the University of York will carry out the research into the plant growth, characterization and application of the catalysts. Finally, the Yale University School of Forestry and Environmental Studies will carry out life cycle, economical and societal assessment to determine what impact the project will have on the wider world.